Fabrication and Properties of Gallium Arsenide (Group IV) Alloy Semiconductors

A systematic study of the synthesis by molecular beam epitaxy and properties of the alloys of GaAs with the group IV semiconductors, Si and Ge, will be performed. These alloys are predicted to have direct bandgaps over part of their composition range, and their successful fabrication would open up new avenues for bandgap engineering in electronic and photonic devices. The PIs will pool their expertise in molecular beam epitaxy, reflection high-energy electron diffraction, x-ray diffraction, and other characterization methods to correlate growth conditions with structural, electrical and optical properties of (GaAs)(Group IV) alloys and heterostructures. The work will also address fundamental properties of interfaces between GaAs and Si and/or Ge. %%% This research will develop a new system of semiconductor materials, formed by alloying gallium arsenide with silicon and/or germanium. Crystal growth conditions for the alloys will be established and optimized using structural, electrical, and optical characterization of the grown semiconductor layers. These alloys will allow new flexibility for variation of the wavelength of light produced by photonic devices, and offer the potential for fabrication of lasers on gallium arsenide substrates which operate at the technologically important wavelengths of 1.3 and 1.5 microns.